International Travel Grant to attend Conference on Chemistry for Protection of the Environment in Lublin, Poland September 18-22, 1995

9521713 Lacy This is an award to provide support for international travel by William J. Lacy who will participate in the Tenth International Conference on Chemistry for Protection of the Environment that will be held at the Technical University of Lublin in Poland. The topics to be covered in this conference include environmental monitoring, waste treatment and management, air and water quality, hazardous materials management, environmental pathways for chemicals, risk assessment and pollution prevention/waste minimization. It is expected that support of this applicant's participation in this conference will be of assistance in providing insights into potential cooperative environmental research projects in Poland and other countries that will be represented at the conference. ***